Mathematical Sciences: Problems in Analytic Number Theory

Gonek 9622753 Professor Gonek will study various problems concerning the distribution of zeros and the mean values of the Riemann zeta function. He hopes to show that certain analogues of the zeta function defined by Dirichlet series have a positive proportion of zeros off the critical strip. He also intends to study various moment problems for the zeta function. He will also study additive divisor problems and theorems of Barban-Davenport-Halberstam type. This project falls into the general area of number theory. Number theory is one of the oldest areas of mathematics and yet every generation returns to these problems again. Encryption and error correcting codes have been vastly improved as a direct consequence of recent research in number theory. ??